U.S.-Bulgaria Research Field (Project Development)

Dr. Ludmil Bankov of the Bulgarian Academy of Sciences' Space Research Institute will visit Dr. Roderick Heelis of the Center for Space Sciences, at the University of Texas, Dallas, to prepare a cooperative research project on high latitude ionospheric electrodynamics. The resulting proposal is intended for consideration under the US- Bulgaria Cooperative Science Program and, if successful, should contribute to our knowledge of the interaction of the Earth's magnetic field with the sun by drawing upon data from two spacecraft (NASA's DE-2 and Bulgaria-1300) which simultaneously cross the high latitude region in different local time sectors.